High Intensity Neutron Source

This proposal addresses the problem of developing a novel, sealed, source of 14 MeV neutrons which can operate at high output flux with long life. The Multiple-Rod Anode Neutron Source (MRANS) uses a simple coldcathode plasma generator combined with a multipole magnetic field and a distributed ion extraction geometry to deliver a high fraction of atomic deuterium ions at energies of 200 keV to a tritium-loaded target. Neutrons are generated in the target through D-T reactions. The proposed ion source/extraction configuration, which is fundamentally different from that used in existing neutron sources, is expected to facilitate greatly increased performance. The objective of the Phase I project is to experimentally demonstrate the basic technical feasibility of the MRANS concept. This will be accomplished by performing the following three tasks: (1) design and assemble an MRANS-type hydrogen ion source; (2) perform pulsed experiments to demonstrate and characterize high-efficiency atomic ion extraction; and (3) develop the conceptual design for a fullscale Phase II experiment which will deliver neutron fluxes in the range of 10 2 to 103 n/s. Successful development of the proposed concept will form a firm foundation for Phase II, and for new and innovative applications of neutron technology.